IPY: PolarTREC -- Teachers and Researchers Exploring and Collaborating

"PolarTREC (Teachers and Researchers Exploring and Collaborating)" is a three-year
teacher professional enhancement program that will advance polar science education
by bringing K-12 educators and polar researchers together in hands-on field
experiences in the Arctic and Antarctic. PolarTREC activities and products will foster the
integration of research and education to produce a legacy of long-term
teacher-researcher collaborations, improvement of teacher content knowledge and
teaching practices, shareable online learning resources based on real-world science,
improved student knowledge of and interest in the Arctic and Antarctic, and broad public
engagement in polar science. ARCUS will adapt and extend existing Teacher Research
Experience (TRE) models and its own experience delivering TREC -- a TRE program
supported by NSF for the Arctic -- to develop PolarTREC, a comprehensive, sustained
field research experience program for K-12 teachers focusing on IPY science themes at
both polar regions. Thirty-six teachers will spend two to six weeks in the Arctic or
Antarctic studying a topic relevant to one of the IPY emphasis areas, with "Live from
IPY" calls, Internet presentations, and podcasts from the field, daily teacher journals,
interactive bulletin boards, photo galleries, online multimedia learning resources and
activities, and participation in CARE (Connecting Arctic/Antarctic Researchers and
Educators) web-meetings to support translation of experiences into the classroom and
beyond. PolarTREC is relevant to the education goals of the IPY by 1) providing a
hands-on field research experience that can be realistically implemented in the polar
regions; 2) broadly disseminating teacher experiences to students and other
professionals; 3) developing a sustainable learning community; and 4) providing clear
and appropriate measures of project success through a formative and summative
evaluation. Additionally, the PolarTREC evaluation will provide a basis for replicating or
expanding the program structure and best practices. PolarTREC will benefit from close
coordination with logistics providers and international programs to ensure operational
feasibility and an international reach.